Support for Symposium at San Diego ACS Meeting in April 2001

0098200
A symposium on "Critical Issues/Questions in Nuclar Dynamics" will be held in San Diego, CA on 1-4 April as part of the 221st national meeting of the American Chemical Society. This symposium, organized by S.J. Yennello (Texas A & M University) and W. Loveland (Oregon State University), features a series of tutorial lectures by recognized leaders in the study of nuclear reactions and presentations by a selected group of international experts. Over twenty-five speakers from seven countries will participate. Summary panel discussions involving the speakers and the audience focus on defining the critical issues and questions facing the field. Among the subjects treated are fusion, multifragmentation, fragmentation and nuclear reaction mechanisms. The NSF sponsorship will assist younger scientists and students to participate in the symposium.